Algebra in Stone-Cech Compactifications and its Combinatorial Applications

The principal investigator proposes to study questions
dealing with the algebraic structure of the Stone-Cech
compactification of a discrete semigroup and the combinatorial
applications of that structure. Some of the questions,
while easy to state, are notoriously difficult. For
example, is there a nontrivial continuous homomorphism
from the Stone-Cech compactification of the positive
integers to its remainder? Equivalently, is there a
finite subsemigroup of the remainder whose elements
are not all idempotents? Among the applications
of this algebraic structure have been results establishing
that certain infinite matrices are image partition regular.
It is hoped that progress will be made on the difficult
question of characterizing which infinite matrices are
image partition regular.

The study of the algebraic structure of the Stone-Cech
compactification of a discrete semigroup is important
for two main reasons. First, many of the questions that
remain open are very simple to state and quite natural.
Secondly, experience has shown that information about
this algebraic structure has significant applications
to the field of mathematics known as Ramsey Theory.
The first such application was the algebraic proof in 1975 by
Fred Galvin and Steven Glazer of the "Finite Sums
Theorem", which asserts that whenever the positive
integers are divided into finitely many classes, one
of these classes contains a sequence and all of its
sums of finitely many distinct terms. After this
initial application many other applications have been found. For example
very easy proofs of van der Waerden's Theorem (which asserts that
whenever the positive integers are divided into finitely
many classes, one of these must contain arbitrarily
long arithmetic progressions) and some of its
extensions have been found. The principal investigator
intends, with some of his students, to continue
the investigation of this algebraic structure
and its applications.